Migration of Meteorological Data Reception from Satellite to the Internet Using UNIDATA LDM Software

Abstract ATM-9527072 William A. Fingerhut and Peter M. Schmid Lyndon State College UNIDATA: A Migration of Meteorological Data Reception from Satellite to the Internet Using UNIDATA LDM Software. This funding shall move the meteorology department from a data reception program, that relies on satellite transmissions, to a program that relies upon the Internet for Meteorological data. A UNIX-based server is necessary to receive data via the Internet. This machine will run the UNIDATA software that will ingest and manage multiple data streams.